Travel: NSF Student Travel Grant for 2023 IEEE International Conference on Software Maintenance and Evolution (ICSME 2023)

This NSF grant will assist graduate and undergraduate students in attending the 39th International Conference on Software Maintenance and Evolution (ICSME 2023) that will be held in Bogota, Colombia on October 1 – 6, 2023. ICSME provides an international venue to bring together students, researchers, and practitioners working in the area of software maintenance and evolution, which is an important sub-area of Software Engineering.

The grant contributes to the development of a well-informed, diverse, globally-aware workforce in Software Engineering and furthers the research and practice of Software Engineering, providing opportunities to meet established people in the field, as well as a cohort of students forming a community, and to broaden participation in the Computing field.